Stochastic Models of Solute Transport at the Field and Laboratory Scales

This research has the objectives of establishing mathematical equations to describe the transport of solutes in underground flow, derive methods of computing the parameters for those equations, and to compare results of this theoretical work to those now becoming available from large-scale experiments.